8th Midwest Workshop on Control and Game Theory; St. Louis, Missouri; 27-28 April 2019

Systematic modeling, analysis, and design of social, economical, and technological systems require confluence of ideas from diverse scientific disciplines, including control theory, optimization, economics and game theory. These systems often involve multiple decision-making agents interacting over a network and form a subset of so-called cyber-physical-human systems. Examples of such systems include smart grid, connected and autonomous vehicles, smart manufacturing, and mixed human-automata systems. Recent advances in technology have made these systems increasingly pervasive in a broad range of applications. Effective design of these systems requires interactions among experts from engineering, economics, and social sciences as well as industry. This forms the basis for organizing the 8th Midwest Workshop on Controls and Game Theory on April 27 - 28, 2019 in St. Louis, Missouri, where leading experts on controls, optimization, game theory, economics and computation from the Midwestern states are brought together to facilitate interdisciplinary and cross-disciplinary research interactions and collaborations.

The purpose of the workshop is to facilitate and enhance research discussions and collaborations among experts in a broad range of disciplines, including biology, economics, and engineering. The invited speakers are leading experts in the areas of controls, game theory, applied probability, computation, dynamical systems, economics, and optimization. The four themes of this workshop are: (i) complex networks and large-scale control systems, (ii) game theory for economic and societal systems, (iii) optimization, learning, and computational methods, and (iv) emerging applications and technologies. These themes will ensure the workshop focuses on both the theory and application of cyber-physical-human systems. The workshop also includes a poster session in which students and postdoctoral researchers will present their current research. The feedback and mentoring of their research from leading experts in the field will tremendously benefit these young researchers. The invited speakers are selected to ensure a broad representation of research areas and substantial participation from underrepresented groups in engineering.